Hypersingular Boundary Integral Equations in Mechanics

This project provides funds to evaluate the computational basis for evaluating hypersingular equations. The first application areas will be in calculating stresses near cracks in elastic bodies and the scattering of elastic waves from thin bodies.